PECASE: A Quality Framework for Interpretive Engineering Education Research

This engineering education research initiation grant seeks to combine elements of the total quality management (TQM) movement from engineering with a framework for evaluating qualitative research that will be developed during the project. There is a need to be able to judge the results of qualitative research; this project will help achieve this goal. Additionally having a clearly delineated framework that draws from language familiar to engineers may help make qualitative research results easier to translate between research communities.

The broader significance and importance of this project lie primarily in building networks and capacity for research as well as being able to more broadly communicate research results. The proposed framework, if widely accepted, may serve in the education of graduate students. Additionally improving qualitative research techniques will help in studies of equity issues with under-represented groups in engineering. This project overlaps with NSF's strategic goals of transforming the frontiers by making investments that lead to emerging new fields of engineering, or shifting existing fields. Additionally NSF's goal of innovating for society is enabled by supporting the development of innovative learning systems.